CSR: Small: Practical Geo-Replicated Storage for Web Applications

There is increasing demand to deploy web applications across multiple data
centers to improve fault tolerance and reduce network delays to
users. As application servers need to share data, their
construction can be significantly simplified if a storage backend exists for
applications to seamlessly access replicated data at different data centers.

A geo-replicated storage system faces the unpleasant tradeoff of consistency
vs. performance because of large inter-data-center communication delay. This
proposal investigates novel consistency and programming models for
geo-replicated storage that are easy-to-use and can achieve good performance.
In particular, this project proposes parallel snapshot isolation, a novel
consistency model that enables efficient implementation with minimal
coordination across data centers. Parallel snapshot isolation provides much
stronger guarantees than existing weak consistency models by disallowing
write-write conflicts and preserving the causality of operations. The PI
builds Walter, a geo-replicated transactional key-value store that guarantees
parallel snapshot isolation. A number of common web applications are written
on top of Walter and evaluations demonstrate that the new consistency model is
easy to program for and enables applications to achieve high performance. The
success of this project will bring much improvement to the state-of-art in
writing scalable and fault tolerant web applications.